Outlier Identification and Handling in Computational Geometry Problems

OUTLIER IDENTIFICATION AND HANDLING IN COMPUTATIONAL GEOMETRY
PROBLEMS
Computational geometry problems arise in all areas of science and engineering, in contexts
such as computer vision, machine learning, data mining, classification, data compression,
geographic information systems, clustering, and facility location. Advances in computational
geometry can yield advances in robotics, genomics, and proteomics, to mention three areas
of pressing interest.
Increasing concern in computational geometry problems is being devoted to outliers,
points in the input data whose removal can yield significant improvements in attainable
optimal values of objective functions. Recent treatments giving attention to outliers involve
quite appealing methods with good results, but these have been ad hoc solutions, specific to
particular problem contexts and entailing restrictive assumptions. It would be desirable to
derive such approaches in a systematic manner from general principles and guidelines, and
to evaluate and compare outlier procedures on such a basis. To date, however, no systematic
approach for handling outliers in computational geometry problems has been set forth, nor
has there been advanced a set of specific criteria to be satisfied by outlier procedures.
Through interdisciplinary collaboration between a computer scientist and a statistical
scientist, this project will develop an outlier identification and handling approach as a new
and versatile tool in computational geometry. Structures of a general nature for effective
outlier identifiers will be formulated. Criteria to be satisfied and desirable qualitative features
will be formulated. Issues such as robustness of outlier identifiers will be addressed. Efficient
computing algorithms will be developed. Significant restrictions on current approaches will
be relaxed.
The project will focus on outlier handling in shape fitting and dimension reduction prob-
lems. A leading tool will be depth functions, an emerging methodology in nonparametric
multivariate data analysis that is useful for description of distributions and data sets and in-
herently supports characterization of outlyingness for points in a data input. As a byproduct,
the project will obtain advances in depth function methods as well.
One proposer has been developing efficient algorithms in computational geometry, the
other developing depth and outlier methods in multivariate data analysis. One proposer co-
organized, and both proposers participated in, the recent NSF-sponsored Workshop on Data
Depth: Robust Multivariate Analysis, Computational Geometry and Applications (DIMACS,
2003), which fostered the collaboration for this research project.
The leading intellectual merit of this project is to advance the foundations of computer
science by providing a general and fundamental method that replaces ad hoc approaches to
outlier handling. Also, the findings will advance the field of statistical science in the area of
nonparametric multivariate data analysis.
Broader impacts of the project include strengthening of the interface between computer
science and statistical science and involvement of graduate and undergraduate students
within a team approach as part of their academic experience. Through its wide applica-
bility the findings of this project will have immediate and central relevance to many areas
of science, engineering and government. The PIs will maintain a web site on which project
results are made known and available to the public at large.